Numerical Studies of Magnetospheric Dynamics and Related Space Plasma Processes

This proposal is for numerical studies of the magnetosphere with a focus on the properties of intermediate shock waves, the dynamics of the magnetosheath and magnetopause, reconnection and convection in the geomagnetic tail, and auroral electron acceleration by lower-hybrid wave turbulence. Scaling behavior of intermediate shocks will be handled through magnetohydrodynamics (MHD) followed by hybrid simulations extended to the high ion beta case (beta is the ratio of plasma to field energy density). MHD studies of the magnetopause will be pursued along with hybrid models to study magnetopause structure. 3D global simulations will be done including all the large-scale dynamics of the magnetosphere to test the effects of magnetosheath and magnetopause boundary conditions. Response of the magnetosphere to these inputs will be analyzed through studies of collisionless reconnection in the near- Earth plasma sheet, extended to cover more general aspects of convection and to consider the structure and stability of more distant parts of the tail current sheet. A new high beta drift- kinetic simulation code will be developed including some kinetic effects for the electrons as well as ions. This code will be used to test the hypothesis that chaotization of electron orbits can restore the universal ion tearing mode - a fundamental question for the reconnection process in space plasmas. Resonant electron acceleration by ion wave turbulence will be studied and the results compared with observations of auroral electron spectra and the structure of auroral arcs.